Using Conceptual Models to Facilitate Conceptual Change: The Case of a Theory of Matter

Recent research has revealed that students typically fail to assimilate the scientist's framework as a result of instruction, in part because they come to science class with concepts that are different from the scientist's. This project aims to provide both detailed analyses of student starting conceptions and an understanding of some instructional conditions that promote conceptual change. The investigators seek to understand the difficulties 6th and 7th grade students have in assimilating the physicist's macroscopic theory of matter: a theory in which mass, volume, and density are all distinct but inter-related properties of matter or material kinds. They hypothesize that students possess an alternative macroscopic theory of matter of some coherence-one in which student's failure to differentiate mass and density is supported by alternative conceptions of matter and material kinds. They also hypothesize that providing students with visual conceptual models is a good way to promote reorganization of their matter theory. These models provide students with a way of visually representing concepts which provide students with a way of visually representing concepts which are themselves not "seeable", building on visual analogies that have the same relational structure as the abstract physical concepts. The investigators will test their hypotheses through teaching studies and clinical interviews with junior high students in both suburban and inner city classrooms. The research will contribute to an understanding of the detailed process in which visual conceptual models help students' conceptual change. The specific problems students have to overcome, the kinds of conceptual models that are most effective, and the ways students' may facilitate or impede their ability to benefit from a model based curriculum.//